Paths to Commercial Accomplishment at American Universities: Examining Multiple Indicators of Technology Transfer Success

This research proposal will examine and analyze several distinct commercialization strategies of universities by exploring the relationships between six measures in this area. The base data set links patent bibliographic information, licensing data, institutional measures of research and training capacity, and indicators of scientific reputation for U.S. research universities. It will also analyze the relationship between the technological composition of academic patent portfolios and the degree and character of commercial accomplishment at universities.